Computer Workstation Laboratory for Undergraduate Mathemat- ics-Computer Science Majors

This project will support the establishment of a computing laboratory for undergraduate majors in mathematics and computer science in conjunction with courses in combinatorics and applied logic. It is being funded under the Instrumentation and Laboratory Improvement (ILI) Program, which has the goal of supporting projects to develop new or improved instrument-based undergraduate laboratory courses in science, mathematics, or engineering. The Instrumentation and Laboratory Improvement Program provides matching support for the instrumentation necessary to implement undergraduate instructional improvements at U.S. colleges and universities. In particular, the main objectives of this project are to 1) provide a computing environment which supports the fast, large- scale computations of the type regularly encountered in numerical analysis and which allows the use of symbolic algebra and functional language packages; and 2) to acquaint students with the tools and methods used regularly by professionals in the world of real research and applications.